Undergraduate Design Projects to Aid the Disabled

The proposal is to fund 5 to 6 undergraduate engineering students yearly to design aids for specific disabled individuals. The grant will expose students to a rewarding real-world design experience, and should motivate them to choose a career in engineering design and research to aid the disabled.